Hadron Structure and Lattice QCD

Research will be done at the interface of theoretical nuclear and elementary particle physics using the analytical and numerical techniques known as `lattice QCD` to investigate a set of topics on computers at major supercomputer centers. QCD (Quantum Chromodynamics) is the theory which describes the strong nuclear force. Lattice techniques make impossible calculations possible by replacing the continuum of spacetime by a discrete lattice of points. The first of the topics to be pursued will be the interaction between light and the `pion` particles found in collisions of nucleons. The second project will be an updated and more precise computer study of neutron and proton electromagnetic structure. The third project will be a detailed investigation of a set of numerical techniques which deal with so-called `disconnected diagrams` in lattice QCD. QCD is part of our theory of the four fundamental forces of nature. The studies to be carried out here will test whether the implications of QCD can be reliably determined using lattice techniques.